Modular Semantics with Monads

In principle, if an algorithm is given generalized input (e.g. a probability distribution, a set of values, a list with no repeats, or values coupled with CPU times)it should produce correspondingly general output. The `modular semantics` studied in this project provides formal machinery for a transparent implementation. For example, given code to produce random outcomes in {x1,...,xn}, a simple declaration that the ambient environment is to be probabilistic prior to calling the code is all that is needed to modify the output from a random single output to an expression {{p1,x1},...,{pn,xn}} wherein pi is the probability of the outcome xi. The underlying programming system must be altered so as to replace standard function evaluation with Kleisli evaluation with respect to a finitary monad in the category of sets. Universal algebra allows for a uniform implementation using tree processing. The primary research goal is to understand the process by which code is transparently interpreted relative to a monad. While existing examples demonstrate the viability of the project, most of the work remains to be done. A secondary research goal is to develop creative applications of monad-driven algorithms.